SBIR Phase I: Production and Separation of Galacto-Oligosaccharides from Lactose for Prebiotic Food Applications

This Small Business Innovation Research (SBIR) Phase I project will develop a novel immobilized enzyme process to produce galactooligosaccharides (GOS) from whey lactose for probiotic food applications. The proposed GOS production process involves two immobilized enzyme reactors and product separation by nanofiltration and adsorption chromatography. Two different alpha-galactosidase enzymes with different GOS formation characteristics will be used to optimize GOS production and yield from lactose. The product stream from the second reactor will be sent to a nanofiltration (NF) separation unit, where GOS, lactose, galactose, and glucose could be separated to yield a product with a higher GOS composition. The process for adsorption with activated carbon and ion exchange liquid chromatography will be developed to further purify GOS.

The commercial application of this project will be in the emerging probiotic and neutraceutical food market for use by both animals and humans. This market is estimated to be in excess of 2 billion dollars per year. The present use of GOS in foods is limited by the high production costs. These costs are attributed mainly to the high enzyme cost and low oligosaccharide yields (less than 30% w/w). The proposed technology is expected to reduce production costs by at least 50% due by improving reactor productivity and enzyme life. Further, the ability to use cheap whey precursor products (current price range : $ 0.12 - $ 0.40 per lb) to value added GOS product (curent price : $ 4 - $ 5 per lb) will be of great benefit to the diary industry.